Integrating Modern Communication Technologies Into A Strength of Materials Course

Engineering - Civil (54)

In this project, we are developing multimedia teaching modules on concrete, steel and wood for a course in strength of materials. Modern communication technologies that include interactive animations, sound, graphics and virtual laboratories are used to educate both undergraduate students and the relevant community (homeowners, building contractors, etc.) on the properties and use of concrete, steel and wood. The modules feature active learning through interactive animations, electronic quizzes and interactive problem solving. Using the Internet, the laboratory exercises are made available at remote locations. The benefits of these modules include enhanced learning, retention and transfer of learning, and improved connection between theory, experiments and applications.